RUI: Spatial and Temporal Dynamics of Atoms in Intense Laser Fields

Theoretical studies of the interaction of laser pulses with the atomic media are pursued using high speed computers to elucidate the nonlinear quantum dynamics of the interaction process. Major parts of the program involve significant undergraduate participation in a developing computational physics program.